Determination of Sources of Atmospheric Organic Acids in Southern California by Carbon Isotope Measurements

9301767 Kaplan Atmospheric organic acids play an important role in acidification of rain and clouds. They are ubiquitous constituents of urban smog and haze and are present in the atmosphere of rural and largely uninhabited areas (e.g. the Amazon Rain Forest Basin). Organic acids not only contribute to lowering pH, they may contribute to visibility reduction by being adsorbed to "black carbon" and they may play an important role in corrosion due to their chelating ability. It has been shown that organic acids such as formic, acetic, and oxalic acids are emitted into the atmosphere by automobiles through incomplete combustion. Additionally, combustion of biomass and industrial products may also generate organic acids and their release from vascular plants may be an important biogenic source. Little information is, however, currently available on the emission rates of organic acids from these various anthropogenic and biogenic sources. This research project will attempt to characterize the sources of atmospheric organic acids in urban and rural areas of southern California by measurements of their carbon isotopic ratios, such as carbon- 14/carbon-12 and carbon-13/carbon-12. The carbon-14/carbon-12 measurements by accelerator mass spectrometry can differentiate fossil fuel-origin carbons form natural biogenic carbons. The measurements of carbon-13/carbon-12 can identify various anthropogenic and natural sources as well as kinetic processes in the formation of atmospheric organic acids. To accomplish this project these researchers have developed methodologies using ion exclusion chromatography to extract, separate, and isolate milligram quantities of individual organic acids form atmospheric wet samples. During Fall 19993 to Winter 1995, atmospheric wet samples such as rain, clouds, fog and dew as well as gas and aerosol simples will be collected in Los Angeles and its surrounding rural vicinity. Various organic acid-emitting sources will also be sampled in this study to determine their specific isotopic ratios. These source-specific isotopic ratio data will be compared to the isotopic data of atmospheric samples, in order to identify the different sources of the organic acids in there samples. The identification of specific sources for these atmospheric organic acids will contribute to future control strategies for acidic deposition and air pollution problems in Los Angeles and elsewhere as proposed by the National Clean Air Act.